Wave Turbulence and Mixing

This collaborative effort addresses two closure problems arising
in fluid systems: the description of turbulent energy transfer
through a large number of wave modes, and the determination of the
amount of mixing at internal breaking waves in a stratified
environment. The methodology proposed includes the asymptotic
reduction of complex partial differential equations to simpler
systems, the numerical simulation of dynamic equations, the
critical analysis of physical principles, and the comparison of
theory and computations with physical laboratory experiments. We
anticipate that the work will yield both physical insights and
interesting new mathematics.

Turbulent energy transfer, dissipation and mixing are key
processes in fluid dynamical problems ranging from the wind
generation of water waves to climate dynamics. In the ocean, for
example, wind driven ocean waves leads to ocean mixing, ultimately
determining the sea--surface temperature, which, in turn, affects
atmospheric winds, temperature and humidity. Turbulent wave action
is responsible for the transfer of energy between the very large
scales of storms and the small scales of wind ripples at which
dissipation takes place. In an atmospheric example, mixing by
upward propagating breaking waves plays a significant role in the
dynamical coupling between the lower and the upper layers of the
atmosphere. The research proposed here will contribute to the
understanding of fundamental physical mechanisms behind these
important phenomena, and hence improve our capability to predict
and quantify climate changes. The proposal will also have a strong
educational impact, through the training of graduate students, the
development of a research seminar for undergraduate students, the
teaching of challenging undergraduate classes, and by having
undergraduate students participate in summer projects focused on
the research.